Collaborative Research: Pacific Ocean Gyre Exchange and Ventilation Processes: Proxy Development Using Deep-Sea Coral

0551792/0551481

Dunbar/Guilderson

Abstract:
The project will address a fundamental hypothesis whether or not modes of climatic variability are stationary and determine the role of North Pacific variability on North American and European climate. By merging the long-term reconstructions based on coral data with the instrumental records the PIs will assess or detect anomalous variability or trends arising during last 60 years.